The Very Fast Dynamics of Protein Unfolding/Folding

9417892 Callender Over the past year or so, a laser-induced temperature jump apparatus (T-jump) was developed which can rapidly, within 100 ps or even faster, raise the temperature of a protein solution 30 C or more. Since proteins unfold usually over a temperature range smaller than this, it is now possible to study the dynamics of protein unfolding with a resolution some 107 times faster than previously possible . We will study the unfolding/folding dynamics of small peptide systems and proteins using this new laser induced T-jump apparatus to initiate the process and time-resolved infrared spectroscopy to follow the time course of these reactions. In addition, static IR and very sensitive novel Raman difference spectroscopies will be employed to characterize the structures of the peptide and protein systems and their changes upon reversible temperature induced unfolding/folding. Vibrational measurements as structure-specific probes of proteins and peptides are well established and, moreover, can follow the kinetics of chemical dynamics down to femtoseconds. For our first measurements, we will study the unfolding steps of ribonuclease A in depth. RNase A is a small monomeric enzyme of 124 residues, consisting of an N- terminal alpha-helix (the S-peptide region) and two shorter helices packed against a central antiparallel -sheet. The S-peptide may be cleaved and isolated from and regenerated with the rest of the protein. In solution, the S-peptide forms considerable helical structure. Since it is possible to selectively isotopically label individual atoms of peptides during peptide synthesis using labeled peptides, it is feasible to 'tag' the peptide and so obtain structural information and follow the dynamics down to the level of individual bonds with our vibrational techniques. The helix is a key structural motif of proteins. For the RNase system, it will thus be possible to examine selectively the structure and dynamics of the helix to individua l bonds in solution and bound to protein and to contrast these dynamics with those occurring elsewhere in the rest of the protein during the unfolding process. We will also study the structure and fast dynamics of other short de novo peptides as models of helixes; these include the FS peptide, previously characterized in Peter Kim's laboratory, and the XA4- peptide, which has been extensively characterized by other means in Neville Kallenbach's laboratory. In addition, we will investigate alpha-lactalbumin because it forms a stable 'molten-globule' state and these states are believed to be very early steps on the kinetic pathway of protein folding. %%% It is known that the shape, or three dimensional structure, of a protein must be just right so that it may carry out its biochemical task. It is also believed that this shape is determined uniquely by the sequence of the protein's amino acid building blocks. It is therefore very important to understand how the sequence of residues determines the pathway by which the protein folds from a very large number of possible disordered shapes into highly ordered just correct one if it is to become possible to design proteins from scratch. Rationally designed protein may be made to perform any number of desired biochemical functions, i.e. act as drugs. At present, kinetic measurements of protein folding, or the reverse situation of protein unfolding, are performed by using stopped-flow techniques which are too slow to determine early key steps. Over the past year or so, preliminary research has developed equipment to initiate the folding steps and follow them with a resolution of 100 picoseconds, some 107 times faster than previously possible. This unique instrumentation involves a laser induced temperature jump apparatus (T-jump) which can rapidly raise the temperature of a protein solution 30 C or more. Since proteins unfold over a temperature range smaller than this, it is now feasible to study the kinetic steps of protein unfolding. The work will study the unfolding dynamics of small peptide systems and proteins using this new laser induced T-jump apparatus to initiate the process and time-resolved infrared spectroscopy to follow the time course of these reactions. In addition, static infrared and very sensitive novel Raman difference spectroscopies will be employed to characterize the structures of the peptide and protein systems and their changes upon reversible temperature induced unfolding/folding. ***